Conference: Community-Informed Policies and Best-Practices for the National Artificial Intelligence Research Resource Pilot

An in-person workshop of leading experts in responsible AI technology and policy will be convened, to obtain community feedback regarding policies and best practices, and inform the development of priorities and policies for the National AI Research Resource (NAIRR) Pilot. By convening a diverse group of stakeholders to offer their perspectives, the workshop will deliver concrete recommendations for improving the trustworthiness of the resources that are components of the Pilot, and for supporting the equitable use of these resources by a diverse group of researchers and students.

A crucial part of the workshop is the involvement of the cyberinfrastructure community, since the technical fundamentals that support AI governance (e.g., data and model documentation across the lifecycle, responsible data generation and sharing primitives, and instrumentation of data-intensive AI workflows for reproducibility and robustness) must be implemented as part of the infrastructure. Embedding transparency and equity objectives into the design of cyberinfrastructure, in support of effective AI governance, will benefit individual scientific projects, the research community, and society at large, with impacts far beyond the NAIRR Pilot.